Acquisition of a 300 MHz NMR to Enhance Faculty and Undergraduate Research and Chemical Education at Bridgewater State College

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemical Sciences at Bridgewater State College will acquire a 300 MHz nuclear magnetic resonance (NMR) Spectrometer. This equipment will enable researchers to carry out studies on a) the structure of synthetic inhibitors and b) kinetic analysis of enzymatic reactions, proton exchange, and chemical stabilities.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry.